An Integrated Four Year Spectroscopy Program

Fourier Transform Infrared Spectrocopy is being incorporated into an integrated four-year spectroscopy sequence and into professional education programs. The program is impacting the laboratories in General, Organic, Inorganic, Physical, Analytical and Biochemistry, as well as senior research. The addition of FTIR upgraded the instrumental facilities and is allowing the offering of well-balanced, modern laboratory experience. Many of the changes were initially implemented using a loaned FTIR instrument, which were made permanent by this project enhancing both the academic and professional programs. The grantee is matching the award from non-Federal sources.